Annual Cliometrics Conferences to be held May, 1994 at the University of Arizona, Tucson

9309164 Williamson The Cliometric Conference series continues to serve as an important means for encouraging research in economic history and as forum for disseminating new methods, findings, and interpretations among historians as well as economists. A special effort is made to include the work of graduate students and assistant professors representing a broad range of specialties, but with increasing emphasis on twentieth century problems. The scientific results of the cliometric history movement have been impressive and promise to be equally important in the years ahead. The 1994 meeting is scheduled to be held in May at the University of Arizona. The 1995 and 1966 Conferences well be held at other sites to be selected from other Universities offering to host the conferences. ***